Enhancing the Performance of Belite via Foreign Dopants

This research project addresses the pressing global challenge of reducing carbon emissions from cement production. Ordinary Portland cement, produced at a rate of 4 billion tons/year worldwide, alone contributes to 6-8 percent of worldwide anthropogenic CO2 emissions. Here, the focus is on developing sustainable belite-rich cements that can be produced with existing rotary kilns and raw ingredients, requiring lower energy and emitting less CO2 compared to conventional alite-rich cements. Belite, traditionally underutilized due to its lower intrinsic reactivity, holds the potential for a sustainable alternative if its performance can be enhanced. This project will systematically identify and test various substituting ions and dopants to improve the reactivity and mechanical properties of belite-rich cement pastes. The successful development of high-performance, belite-rich cements will not only reduce the carbon footprint of the cement industry but also support national interests in advancing sustainability and lowering energy costs associated with cement production. The project includes an educational outreach component, leveraging virtual reality (VR) to engage and inspire students in STEM fields, thus contributing to workforce development and promoting science and engineering among younger audiences.

The technical objectives of this research include the 1) identification of effective foreign dopants to enhance belite reactivity, 2) comprehensive experimental validation of these dopants, and 3) the synthesis of cementitious clinkers with improved performance characteristics. The project will then employ advanced characterization techniques, such as Raman spectroscopy, solid-state NMR, and synchrotron-based X-ray scattering, to understand the structural and performance changes in doped belite samples. Finally, the research will also involve the analysis of their long-term hydration behavior and assessment of the mechanical properties of belite-rich cements. By integrating novel dopants into the belite structure, the project aims to significantly reduce energy consumption and CO2 emissions during cement production, paving the way for the widespread adoption of more sustainable cementitious materials in the construction industry.